Mathematical Sciences: Examples of Totally Categorical Theories

8815351 Ahlbrandt The investigator and a collaborator (M. Ziegler) are seeking a very detailed classification of totally categorical theories. This venture in abstract model theory, a major branch of the foundations of mathematics, involves a great deal of algebra. Encouraging initial results have been published and will be extended.